Computer Controlled Laser Spectroscopy for Undergraduate Instruction

The Williams College Department of Physics and Astronomy will purchase equipment to conduct laser spectroscopy experiments. Junior and senior undergraduates will use the equipment in laboratory courses to explore laser spectroscopy and computer control of experiments. A nitrogen pumped dye laser, a spectrometer, and a boxcar integrator will be used to explore some of the recently developed techniques of modern spectroscopy. All three instruments will be controlled by a computer. The boxcar integrator, which is a tool for recording fast electronic signals, and the computer will also be used by senior honors students carrying out original research under the supervision of a faculty member. This sophisticated modern equipment will be an important addition to the college's teaching facilities.